Affinity Labeling of Purine Nucleotide Sites in Proteins

Purine nucleotides have a multi-functional role in cellular metabolism. For example, they are directly involved in kinase and ATPase reactions, they functin as regulators of many allosteric enzymes, they are involved (through the effects of cyclic AMP) in the action of several hormones, they contribute to the aggregation of platelets, and they participate in dehydrogenase reactions as part of the coenzyme molecule. The immediate aim of this study is to develop the tools which will allow systematic exploration of the amino acid residues in the purine nucleotide sites of proteins. The general approach of affinity labeling will be used based on reagents previously synthesized in this laboratory as well as on new reagents which incorporate, at various positions of the purine or ribose ring, alkylating agents capable of reacting covalently with the protein; the purine nucleotide moiety will thus provide the specificity for chemical modification of the proteins within the binding sites. The effects of these nucleotide alkylating agents on the rabbit muscle pyruvate kinase as well as on the rat liver ecto-ATPase will be examined. The aggregation of blood platelets is induced by ADP, presumably by binding to receptor sites on the platelet surface membrane. Affinity labeling with the purine nucleotide analogues will be used to identify and isolate the ADP receptor protein of platelet membranes. Further, the effects of reactive cAMP derivatives on the platelet cAMP phosphodiesterase will be explored. For each enzyme, the kinetics of the affinity labeling reaction will be examined, the extend of reagent incorporation will be determined and radioactive peptides will be isolated from proteolytic digests of labeled enzyme to identify the modified residue. The first class of nucleotide analogues which we described, the fluorosulfonylbenzoyl nucleosides, has already been used to react at specific sites of more than 50 proteins; it is likely that the newer compounds which we develop will similarly have broad applicability in the labeling of nucleotide sites in proteins and that these studies will serve as prototypes for the use of these compounds to probe other enzymes.